Postdoctoral Fellowship: MSPRF: Random Geometry in Two and Three Dimensions

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Catherine Wolfram is “Random Geometry in Two and Three Dimensions”. The host institution for the fellowship is Yale University and the sponsoring scientist is Richard Kenyon.